Grant for Conference Support: Technological Foundations for Customer Choice in the Electric Power Industry, Howard University, Wash., D.C., June 1-2, 1995

y9523042 Thomas This project is for support of travel expenses for students and non-PSERC faculty to attend a two-day conference. The Conference is sponsored by the newly formed Power Systems Engineering Research Consortium (PSERC), EPRI and the USDOE and will be of value to people from industry, government, and academia with interests in the technical elements of the electric power industry restructuring and of the associated public policy issues. Persons with technical backgrounds will find the conference extremely informative about technical issues and research frontiers. Persons with non-technical background will find opportunities in the conference to develop a better understanding of power system technologies, and of operational and planning issues associated with providing universal customer choice. ***